Conference: GEO:CM Workshop on Remote Sensing and Critical Mineral Discovery

This workshop will introduce the use of hyperspectral data for critical mineral exploration. The workshop will introduce opportunities to use data in new research. Participants will learn how to access and use existing data. The workshop will recruit participants from academia and the mining industry. This project will support early career researchers. Participants will interact during the workshop to connect academic geologists with the mining industry. Discussions will explore the skills needed in the mining industry. Participants will discuss workforce development and how to train students to use remote sensing data in exploring for critical minerals.

The Workshop on Remote Sensing and Critical Mineral Discovery aims to enhance participant familiarity with spectral data and its industrial applications. Participants will learn to identify available remote sensing datasets, examine case studies of successful mineral discoveries, and gain hands-on experience accessing data via NASA’s Earthdata and the Jet Propulsion Laboratory Geological Earth Mapping Experiment (JPL GEMx) portals. Key objectives include fostering partnerships between academia, industry, and government, and exploring methods to integrate spectral data with other geoscience resources like airborne geophysics and geochemical databases. Workforce development discussions will identify skills needed in the mining industry to train the next generation in applying remote sensing data to domestic critical mineral discovery. Additionally, the event will address data processing workflows and highlight funding opportunities for collaborative critical minerals research.